Dissertation Research: Development and Significance of Biasin Sex Ratio of Silene latifolia Populations

In plant species with chromosomal sex determination, one would expect the ratio of males and females to be 1:1. To characterize fully the significance of a known unbalanced populationsex ratio, processes which cause the bias are of primary interest, not only in terms of explaining a population condition, but elucidating fundamental differences in the selective pressures affecting the different sexes. A series of experiments to study mechanisms affecting the sex ratio of the dioecious perennial Silene latifolia (Caryophyllaceae) are proposed. The proposal will address a set of main factors potentially responsible for the initiation and maintenance of a sex ratio bias: discrepancies between numbers of X- and Y- containingpollen in males, death of XY or XX zygotes, differentialsurvivorship within the seed bank, and sex specific mortality schedules. The experiments described will provide valuable information on when males and females experience divergent selection pressures. This knowledge, in turn, will help us address the ecological and evolutionary significance of such biases.